National Academy of Engineering Symposium on Frontiers of Engineering

This symposium will be modeled on the Frontiers of Science symposium series organized by the National Academy of Sciences. The meeting will be designed to bring together a select group of the nation's best young engineers from industry, academia, and government to discuss pioneering technical work and leading edge research in various engineering fields and industry sectors. The goal of the symposium is to introduce the nation's outstanding young engineers to each other, and through this interaction facilitate collaboration in engineering and the transfer of new techniques and approaches across fields.